Fukaya Categories and Applications

Abstract

Award: DMS-0405516
Principal Investigator: Paul Seidel

The main aim of the project is to harness the power of Fukaya
categories for use in symplectic topology. This includes
developing computational tools, building a repertoire of
nontrivial examples, and also studying the relationship between
Fukaya categories and Gromov-Witten invariants. Concrete
examples that will be looked at include: Fukaya categories of
Riemann surfaces; Lagrangian submanifolds in cotangent bundles;
and the symplectic geometry of Khovanov's link
invariants. Various aspects of mirror symmetry will be important
sources of intuition, and the experience gained in this way
should ultimately feed back into a better understanding of mirror
symmetry itself, especially its homological aspects.

From a wider perspective, the project is part of the reaction of
the scientific community to recent advances in theoretical
physics. The contribution that mathematics can make is to verify
the soundness and consistency of physical intuition, and to
prepare the general ground on which further development can
occur. This is particularly important in those situations where
developments in physics suggest the presence of deep and complex
structures, which are difficult to detect by direct experiment. A
nice aspect is that the same circle of ideas allows one to answer
some purely mathematical (geometric) questions inspired by the
"old" physics of classical mechanics.